Manufacturing Technology and Pre-Engineering Scholarship Project

Two-year scholarships are being awarded to forty full-time Manufacturing Technology and Pre-Engineering students who demonstrate both academic potential and financial need. Students in both the two-year terminal degree program and those planning to pursue a four-year bachelor's degree in engineering are eligible for the scholarships. A special effort is being made to attract academically talented students from underrepresented groups including women. Scholars are being organized into cohorts receiving support from local industry including career workshops. Childcare assistance is being made available to parents of young children.